Computerized Data Acquisition and Analysis for the Undergraduate Physiology Laboratory

The objective of this project is to make a significant contribution to improving Wellesley's undergraduate Physiology laboratory through the acquisition of electronic recording and monitoring equipment that will allow the incorporation of computer-based data collection and analysis techniques. The instruments to be acquired, when interfaced with general purpose microcomputers currently available in the department, will provide invaluable experience with modern physiological research techniques, as exemplified by thirteen already-developed student exercises and by others yet to be prepared. Successful laboratory exercises will be collected into a manual for dissemination to other institutions. In addition, the equipment will allow the Wellesley faculty to increase opportunities for independent research by undergraduate students in the department, and to enhance the honors research program. This project ultimately is aimed at increasing the number and improving the educational experience of women who choose careers as professionals in the biomedical and allied life sciences. The project's impact at Wellesley will be felt at once; a broader national impact also may be gained.